International Conference on the Physics of Strongly Coupled Plasmas; Rochester, New York; August 17-21, 1992

Support is provided for an International Conference on the Physics of Strongly Coupled Plasmas, to be held at the University of Rochester in August, 1992. The conference focuses on the statistical physics of strong coulomb systems and crosses the fields of plasma, statistical and astrophysics. The grant provides travel and subsistence for speakers as well as bare minimum general expenses for the meeting.